Kinetics of Irreversible Aggregation and Fragmentation Processes

Processes of colloid coagulation, polymer gelation and degradation, aerosol formation, Ostwald ripening in metals, even galaxy clustering all involve a series of irreversible processes including aggregation, fragmentation, feed, removal, and exchange. In the past, most of these processes have been studied in the narrow confines of a particular application. In the present work, they are studied in their most general form, so that the overall nature and behavior of the kinetics can be understood. Modern ideas of scaling theory (also called similarity solutions or self-preserving spectra) are applied, as is the concept of fractals to the geometry of the clusters. The interest in these problems has expanded with recent computer studies of cluster aggregation. Here computer simulation is used to advance the theoretical understanding of these irreversible processes. New specific explicit solutions for the time-- dependent kinetics, with applications to a wide variety of fields, are given. Kinetic trandition phenomena, such as gelation and shattering, are explored.